Electro-Optical Resonance Raman Spectroscopy

This Career Advancement Award will enable Dr. Jeanne McHale to pursue a one year pilot study developing resonance raman approaches to the Stark effect. Past approaches have used less informative electronic spectroscopic approaches. Results of Raman studies of this kind will provide structural information which has been hitherto unavailable. Dr. McHale has developed a productive program in Raman Spectroscopy and has constructed most of the necessary equipment to do this kind of work. Funding of this project is timely because it will enable her to establish herself at the lead of a potentially extremely important new direction in her research. %%%This proposal builds a research program in the study of how electric fields distort the structures of molecules. Such information is important to the understanding of many aspects of biochemical phenomena and of catalytic processes of industrial significance.